Temperature and disorder chaos in KPZ, level curves of random surfaces, and critical random geometry.

Disordered systems provide an important testbed for studying the effects of microscopic impurities on macroscopic behavior. Key examples exhibit random energy landscapes with many macroscopically separated energetic valleys corresponding to near-ground states. This high complexity renders these systems extremely sensitive to perturbations of external parameters, such as the temperature or the underlying disorder itself. In this proposal, the PI lays out a plan to investigate the landscape complexity of models of random geometry and polymers exhibiting universal features predicted by the Kardar-Parisi-Zhang (KPZ) equation. Potential connections to models of Liouville quantum gravity will also be explored by probing systems at criticality. By combining static approaches with a new dynamical viewpoint, this program will develop novel techniques, initiate new research directions, and significantly improve our understanding of universality in nature. Interdisciplinary collaborations will also be pursued with the goal of applying rigorous ideas from stochastic growth to study predictions arising in cancer and epidemic modeling. The program also has a strong educational component, including mentoring graduate students and postdoctoral researchers, developing courses, and writing survey articles.

A central example of a disordered system is the directed random polymer in a random environment, where random walks are reweighted according to the integral of the disorder variables along their trajectories, multiplied by an inverse temperature parameter. The zero-temperature version is a canonical model of directed random geometry known as last passage percolation. The PI will investigate noise sensitivity and chaotic properties of such models under natural dynamical perturbations of temperature and disorder, placing long-standing predictions from the physics literature on a rigorous footing. By combining static and dynamical approaches, robust general-purpose probabilistic techniques will be developed. Large-deviation behavior will also be investigated for models admitting connections to Gibbsian line ensembles. Such line ensembles also arise naturally as level curves of random surfaces related to the Ising model, and important open questions concerning their mixing properties will be pursued. Further, potential connections between models in the KPZ universality class and those related to Liouville quantum gravity will be explored by investigating examples where the underlying disorder possesses a fractal structure exhibiting features of a critical system. To this end, a framework based on multiscale analysis will be developed, yielding novel exponents and logarithmic correction terms. The program will also foster connections among the probability, mathematical physics, and theoretical computer science communities through the development of these ideas.